Developing a Model to Map Global Positioning System (GPS) Data onto Transportation Networks

The United States' global positioning system (GPS), NAVSTAR, consists of a
constellation of 24 satellites orbiting in high altitude. GPS receivers
that can be placed in any type of vehicle, including automobiles, trucks,
buses, airplanes, trains and ships, calculate their position on the earth
based on their distance from four or more of these satellites. This ability
to determine the location of vehicles in time has many useful applications
in transportation including tracking vehicles on networks for navigation or
travel surveys, as well as collecting and storing data about the networks
of roads, waterways or even pipelines for facility inventories. Although
development of a technique such as that proposed here to map GPS point data
to linear network configurations has many applications, it is routing
behavior and route choice as an improvement to traffic assignment models in
urban planning that are specifically of interest to this researcher.

The objective of this research is to develop a mathematical model to
determine routes on networks from GPS point data in order to automate the
route data collection process such that the recording of routes can become
routine and widespread. The data points collected by GPS receivers for the
route of a vehicle travelling in a transportation system are recorded as
single points in space. Network segments such as roads, even though they
have two dimensions including width, are represented as one dimensional
lines in a GIS or other network database. Even if there were not errors in
both the GPS points and the network data it would be necessary for the GPS
points to be translated to links in order to consider the route behavior or
optimize it in the network system. Currently, errors that can not be
completely eliminated in both the GPS collected points as well as the base
linear networks make the process of matching the GPS data onto the network
complicated. In many cases, humans are needed to directly transform the
GPS point data into a representation consisting of network line segments
for analysis. This is not practical on a large scale for full
transportation networks where a large number of vehicles are being tracked.

In this project GPS point data for automobiles traveling on an urban road
network will be collected (urban roads will be used because their close
spacing as well as the interference from buildings challenges the
methodology). Data will be collected during various weather conditions as
well as at different times of the day when satellite configuration varies
and affects measurement quality. The known actual routes will be manually
entered into the road network database and a mathematical model will be
developed to transform the GPS points into complete routes in link by link
network (line) nomenclature. The model will make use of a minimum path
algorithm and link impedances defined based on GPS point density, velocity
and bearings. Goodness of fit measures that determine the extent of match
between the actual and modeled routes will be used to evaluate alternative
model specifications.

This award is made under the Exploratory Research on Engineering the
Transport Industries (ETI) program solicitation.